Centroidal Voronoi Tessellations: Algorithms, Applications, and Theory

A centroidal Voronoi tessellation (CVT) is a Voronoi tessellation of a
given set such that the associated generating points are centers of
mass of the corresponding Voronoi regions. Applications of CVT's
range from problems in image compression, vector quantization,
quadrature rules, grid generation and optimization, finite difference
schemes, distribution of resources, cellular biology, cluster analysis,
and the territorial behavior of animals. The goals are to develop highly
efficient parallel algorithms for the computation of CVT's, to gain
further understanding of interesting features related to the these
tessellations, to implement and test these algorithms, and to produce
a useful software suite that can serve as a design tool for many
problems in applications.

Among the theoretical questions to be studied are the complexity of
algorithms for the construction of CVT's, the effects of nonuniform
densities, CVT's in general metrics, constrained CVT's, and generalized
CVT's based on lines, curves and surfaces.

Parallel deterministic and probabilistic algorithms will be developed
and tested. In the former case, different averaging and communication
strategies will be examined; for the latter,domain decomposition
ideas will be exploited. This effort can lead to parallel grid generation
algorithms and other software useful in applications such as
clustering analysis.

Applications of CVT's will also be studied, with particular emphasis
on grid generation and optimization. The questions addressed in this
connection include the role of the density functions used to generate
the CVT's on the optimal placement of grid points, the construction of
grids with special properties and the the use of various generalized
CVT's. Another application that will be examined are the use of CVT's
in the clustering analysis of large data sets.